U.S. Participation in an International Conference on Urban Storm Drainage

The travel grant will support four U.S. engineers attendance to the International Conference on Urban Drainage to be held on August 31 to September 4, 1987, in Lausanne, Switzerland. This conference will be held concurrently with the XXII Congress of the International Association of Hydraulic Research. A report will be prepared by the P.I. on the research needs in the field of urban storm drainage identified by the participants in this conference. An award is recommended.